Internet2 Advanced Research and Education Network Atlas

The Advanced Research and Education Network Atlas (ARENA) project will create a web accessible compendium of information about research and education (R&E) networks around the world. By bringing a variety of information about the capacity, capabilities and connections of R&E networks together in a single place and in a uniform format, the ARENA will facilitate the engineering and use of advanced networks by the research and education community. At the core of the ARENA will be a repository of maps of high performance backbone networks in the US and around the world.